Verification of the Uncertainty Principle in the Hope College Advanced Laboratory Course

Hope College will add an experiment to its Advanced Physics Laboratory course to verify the time-energy uncertainty relation (Delta) and lifetime of an excited level of (57)Fe. The uncertainty in energy of the level will be measured using the Mossbauer effect which allows the natural linewidth of the emitted gamma rays to be determined using the Doppler effect and resonant absorbtion. The uncertainty in lifetime will be determined by measuring the time between the production and decay of the same nuclear level using fast electronic components. The equipment needed for this investigation will also be used for general improvements to the Advanced Laboratory course. In particular, the nuclear Zeeman effect will be studied using the Mossbauer apparatus with a ferromagnetic absorber in which the nuclear levels are split by an internal magnetic field produced by the electronic motion. Hope College will match the NSF funds with an equal amount of non-Federal funds for this project.